Biochemistry of Enzyme Sorting

This is a proposal to study the maturation of lysosomal enzymes in Dictyostelium discoideum. Using a sulfation defective mutant for the project, and an in vitro system developed in his lab or sulfation of endogenous lysosomal precursors and exogenous lysosomal enzymes, the investigator will focus on one of the enzymes, N-acetylglucosaminidase. Since a nearly complete cDNA copy of the mRNA has been cloned by the investigator, it would be easier to characterize this enzyme.